SBIR Phase II: Novel Methodology for Purification and Separation of Platinum Group Metals

This Small Business Innovation Research Phase II project is focused on designing a series of extremely efficient metal extraction products (MEPs) with tailor-made properties for specifically extracting and purifying platinum group metal (PGM) anions from acid solutions. Existing PGM recovery and separation methods are complex and expensive. The Phase II project will fully develop the separation and purification of PGMs, scale up the MEP synthesis and expand the scope of the work to launch the technology into PGM recycling market.
These novel MEPs will have wide applications in the precious metal refining as well as recycling industries. It is estimated that the total value of precious metal catalysts in spent automobile catalytic reactors in the United States alone is $ 800 million a year. Additionally, these MEPs could also be used in the separation and purification of actinides, such as plutonium, and in the pre-concentration of trace amounts of anions (e.g. chromate, arsenate) to aid in environmental analysis. Modifications of the structure may also lead to the production of highly specific environmental sensors for the in-situ detection of contaminants in groundwater and other aqueous streams.